Development of an Imaging FT-IR System for Combinatorial Sciences

ABSTRACT CTS-9871020 Jochen Lauterbach Purdue University Title: Development of an Imaging FT-IR System for Combinatorial Sciences Professor Jochen Lauterbach will develop an Imaging FT-IR system for high throughput screening of materials such as polymers, adsorbed layers on catalysts, and solid state restructuring during reaction. The goals are to achieve a system capable of imaging a 75 mm x 75 mm field of view, determine trends in structure-property relations within a combinatorial library, develop response speed sufficient for in situ measurement of chemical reaction-induced changes in a large library of compounds. The instrument development will be carried out in the Chemical Engineering Department. Purdue University will cost-share 33% of the development.